A VLA D-Array Survey and a Search for Active Galactic Nuclei

9320547 Broderick This research will be devoted to using the Very Large Array (VLA) in Socorro, New Mexico for a very sensitive large-scale survey of the sky north of -42 degrees declination. The VLA will be used to make more than 200,000 snapshot observations which will be combined to produce 2326 maps. These maps will have a nearly uniform sensitivity of less than 0.4 mjy. It is expected that about 2 million sources will be found. The maps and source list will be made available to the astronomical community as soon as they are finished via electronic mail, CD-ROMS, and other media. The data will be used by the Principal Investigator to search for Active Galactic Nuclei in nearby galaxies. The Principal Investigator has had many years of experience in work of this type and his work is very highly regarded by the astronomical community. ***